Image Signatures

This project investigates image signatures which are compact representation of images. The research focuses on the investigation of different neural network architectures, such as backpropagation or cascade-correlation, for their capability to generate image signatures. The project is based on two ideas. One idea is to use the notion of atomic images (images containing one object) and their corresponding atomic signatures, as well as composite images (images containing more than one object) and their composite signatures. Another idea is to train neural networks on atomic images and/or their signatures and then to have such networks to recognize arbitrary composition of atomic images and/or their signatures. The results of this research will form the foundations for an efficient access of images in databases and retrieval of images by their content.